SBIR Phase II: Artificial Intelligence Tutoring and Assessment for Teacher Development

This Small Business Innovation Research (SBIR) Phase II research project focuses on bringing the power and benefits of artificial intelligence tutoring technology to the arena of teacher professional development (PD). The proposed innovation is a teacher professional development system built on the principles of artificial intelligence, and delivered via the Internet. Similar to a flight simulator, this technology will offer a realistic but benign opportunity to test and expand a teacher's preparedness through practice with realistic classroom situations. A key objective is the creation of a classroom simulator which incorporates a virtual master teacher, to help teachers deepen their content understanding, learn to respond to student questions more effectively, practice proven pedagogical techniques for improving student understanding and conduct self-monitoring and assessment before getting in front of a live class.

An increasing number of schools are forced to rely on new or out-of-field teachers to fill the gap for teaching science and mathematics, often resulting in a substantial decline in quality, depth and individual attention students receive. Because of the well-documented problems of teachers teaching out of their content areas, and low-performing schools having greater percentages of lesser-qualified teachers, states have established stronger criteria for in-service teachers and newly qualifying pre-service teachers. Middle and high school science and mathematics are the areas where most out-of-area teaching is occurring. In the National Center for Education Statistics (NCES) report, 'The Condition of Education', a key finding is that high school students in high-poverty, high-minority schools were more often taught science, mathematics and English courses by out-of-field teachers than their peers in low-poverty, low-minority schools. This research is expected to impact these issues and in addition address the goals of the American Competitiveness Initiative and the requirements for highly qualified teachers identified in the 'No Child Left Behind' initiative.